RUI: Constraint Systems for Analysis of Scientic Programs

This project will investigate the nature of constraint systems that can be used to solve problems in the compile- time analysis of programs that manipulate arrays. Accurate analysis of array references is critical to the automatic optimization of scientific programs for parallel supercomputers. Empirical evidence has shown that this analysis can be described accurately using constraints (which is not surprising), and that the resulting constraints can be manipulated efficiently (which is quite surprising, given the constraint system involved). This project will investigate the apparent discrepancy between the worst-case complexity of the general constraint solver (2^2^2^n) and the observed efficiency of constraint-based dependence analysis, seeking a formal description of a constraint system that includes many of the cases that arise during analysis of benchmark programs but can still be manipulated efficiently. Such a formal description will provide a deeper understanding of the practical applications of constraint manipulation algorithms and provide a guide for potential users. The new constraint manipulation algorithms will be implemented within the framework of the National Compiler Infrastructure and made freely available.